Structure and Assembly of Helical Plant Viruses

9506204 Stubbs The structures of a number of helical plant viruses will be determined in molecular detail, using the fiber diffraction methods already used in this laboratory for several viruses of the tobamovirus (tobacco mosaic virus, TMV) group. The viruses to be studied include three tobamoviruses, odontoglossum ringspot virus (ORSV), ribgrass mosaic virus (RMV) and sunn-hemp mosaic virus (SHMV), and one furovirus, soil-borne wheat mosaic virus (SBWMV). Structures of the three tobamoviruses will be determined by molecular replacement, using the known structure of TMV. The structure of SBWMV will be determined using the methods of multi- dimensional isomorphous replacement developed in this laboratory. All structures will be refined using molecular dynamics methods, as adapted in this laboratory for use with fiber diffraction data. These refinement methods will be developed further. The tobamovirus group is the only rod-shaped virus group for which three-dimensional structures have been determined at the molecular level. The structures to be determined will be important in understanding the molecular characteristics of the group, including the relationship between subgroups, and will advance understanding of viral assembly and disassembly, viral-host interactions and specificity, and vector transmission, as well as the relationship between structure and the rapid evolution of RNA viruses. %%% The structures of a number of rod-shaped plant viruses will be determined in molecular detail, using the fiber diffraction methods already used in this laboratory for several viruses of the tobamovirus. The viruses to be studied include three tobamoviruses, odontoglossum ringspot virus (ORSV), ribgrass mosaic virus (RMV) and sunn-hemp mosaic virus (SHMV), and the furovirus soil-borne wheat mosaic virus (SBWMV). The tobamovirus group is the only rod- shaped virus group for which three-dimensional structures have been determined at the molecular level. The structu res to be determined will be important in understanding the molecular characteristics of the group, including the relationship between subgroups, and will advance understanding of viral assembly and disassembly, viral-host interactions and specificity, and viral transmission, as well as the relationship between structure and the characteristically rapid evolution of RNA viruses. ***